5th Lake Michigan Workshop on Combinatorics and Graph Theory

The 5th Lake Michigan Workshop on Combinatorics and Graph Theory will
be held at the University of Notre Dame on April 21--22 2018.
The workshop will benefit graduate students and junior researchers in
the field of discrete mathematics, working at institutions in the Great Lakes area.
It is built around two sets of three tutorial lectures, focusing on state-of-the-art techniques and results that the speakers feel are underrepresented in typical graduate sequences, and
on emerging techniques on which the speakers are particularly
qualified to expound. There will also be short talks by students
and younger faculty members. There will be ample unscheduled time
during the weekend, allowing new research collaborations to
commence and active collaborations to be continued. Junior
participants will establish valuable connections with more senior
colleagues, and receive guidance from them in a relaxed and informal
environment.

The tutorial speakers for the 2018 workshop will talk about "Connections
between Coxeter systems, permutation patterns and reduced words", and "Edit distance in graphs". The website for the conference is https://www3.nd.edu/~conf/lmwcgt18/.